Dynamical Systems, Rigidity and Related Topics

Abstract:

The central theme of the proposed program is the study of various
aspects of rigidity in dynamics.
New methods and insights have been recently introduced by the PI and
his collaborators which led to a significant progress in the problem
of rigidity of invariant measures and the differentiable rigidity of
orbit structure for actions of higher rank abelian groups. Advances
achieved based on these methods engendered fruitful applications to
Diophantine approximation problems in number theory and to the problem
in arithmetic quantum chaos. There are several major directions in the
proposed program:
1. Local differentiable rigidity for partially hyperbolic actions of
higher rank abelian groups with the emphasis on the combination of the
dynamical systems, harmonic analysis/group representation and
geometric methods.
2. Global rigidity of Anosov actions, using various approaches based
on invariant rigid geometric structures.
3. Rigidity of invariant measures using the innovative high entropy
and low entropy methods in the positive entropy case as well as new
approaches to the zero entropy case.
4. Problems of quantum unique ergodicity and existence of scars for
Finsler geodesic flows and billiards in polygons.
5. Precise asymptotic and multiplicative lower bounds for the growth
of the number of periodic orbits for broad classes of dynamical
systems with non-uniformly hyperbolic behavior.
6. The problem of smooth realization of measurable dynamical systems.

Mathematical concept of ``rigidity'' has many facets. Its simplest and
most basic manifestations can be seen from the following elementary
example: a small number of equations or inequalities of a
special type may imply much larger number of equation. For example, if
the arithmetic mean on n numbers coincides with the geometric mean
(one equation) then the numbers are all equal ( n-1 equations).
An example from the PI's earlier research is conceptually
similar albeit technically much more sophisticated: a compact
surface of negative curvature, i.e. a bounded geometric shape where any
geodesic triangle has the sum of its angles less than 180 degrees, for
which two numbers characterizing global and statistical volume growth
(topological and metric entropy) coincide has constant negative
curvature, i.e. the sum of the angles of a geodesic triangle is
uniquely determined by the area. The research under the present grant
involves both deeper
investigation of rigidity phenomena for dynamical systems with
multi-dimensional time,
and expansion and development of striking application to several areas
of mathematics and mathematical physics. Among the latter are: 1)
problems of simultaneous approximation of several irrational numbers by
rationals and 2) connection between the behavior of certain class of
quantum mechanical systems and their classical limits when Plank
constant goes to zero. The central idea is that certain properties of
classical limits
(such as hyperbolicity or ``chaos" on the one hand and presence of
certain types of periodic orbits on the other) is reflected in the
behavior of quantum systems such as
``unifrom distibution of quantum states " and ``scars".